Evidence for Recent Climate Change and a Cretaceous Thermal Event in Southern Victoria Land

This award supports a project designed to confirm that the East Antarctic ice sheet has become thinner in the past 100,000 years. The project will measure the exposure ages and erosion rates of Antarctic rocks from Southern Victoria Land using in-situ produced Beryllium-10 and Aluminum-26, in collaboration with Drs. Gunter Faure and Teresa Mensing at the Ohio State University. This new surface exposure dating method is applicable to various geomorphological subjects and is especially useful in Antarctica. Measurement of other in-situ produced cosmogenic nuclides, particularly 14C and 21Ne, will be performed for selected samples.